CDS&E: Generative Modeling of Atomic Disorder in High-Entropy Oxide Materials

Non-Technical Description:

Rechargeable lithium-ion batteries power many technologies central to modern life, including portable electronics, electric vehicles, aerospace systems, and electric grid storage. Improving batteries requires cathode materials that can store more energy while remaining stable and safe during repeated charge and discharge. A promising class of materials, called high-entropy oxides, contains several different metal elements mixed together in the same crystal structure. This unusual chemical complexity can improve battery performance, but it also poses a major scientific challenge: understanding how atoms are arranged locally and which atomic arrangements make the material more stable, more energy-dense, and less prone to degradation. This project addresses that challenge by developing an artificial intelligence (AI) framework to learn the hidden rules governing atomic disorder in high-entropy battery cathodes.

The central idea is to treat a crystal structure as a sequence, much as words form a sentence. Each atomic site in the crystal is represented as a "token," such as lithium, nickel, manganese, titanium, molybdenum, or niobium. A Transformer-based AI model, inspired by large language models, learns which atoms are likely to occupy which sites based on the surrounding chemical environment. The model is then used to generate new candidate atomic arrangements, identify short-range ordering patterns, and guide the design of more stable high-entropy cathodes.

The project serves the national interest by advancing fundamental battery science, accelerating computational materials discovery, and supporting technologies relevant to transportation electrification and grid-scale energy storage. It also trains graduate and undergraduate students in first-principles modeling, machine learning, high-performance computing, and battery materials science. Open-source software, curated datasets, tutorials, and online demonstrations are shared publicly to help other researchers and students use the methods for additional disordered materials, including catalysts, functional oxides, and other energy-storage compounds.

Technical Description:

This project develops a computation- and data-enabled framework for modeling and inverse design of atomic disorder in high-entropy oxide cathode materials. The work targets two representative Li-ion cathodes: HE-SC-N88, a Ni-rich layered oxide, LiNi0.88Mn0.03Mg0.02Fe0.02Ti0.02Mo0.02Nb0.01O2, and HE-DRX-TM, a Li-excess disordered rock-salt oxide, Li1.2Ti0.2Mn0.2Mo0.2Nb0.2O2. These materials exhibit significant electrochemical promise but also present a large configurational space, as multiple transition metals and lithium can occupy crystallographic sites in many possible arrangements.

The central hypothesis is that modern generative sequence models can learn the "occupancy grammar" of disordered crystalline lattices from first-principles Density Functional Theory (DFT) data. The project generates DFT-relaxed supercell datasets for HE-SC-N88 and HE-DRX-TM under fixed composition, recording site occupancies, local environments, total energies, and derived short-range order metrics. Each crystal structure is mapped into a token sequence in which each token represents the species occupying a specific lattice site. Lithium is explicitly tokenized, allowing the model to learn Li/TM distributions, Li–Ni antisite defects, and Li–Li or Li–TM local environments. Positional and sublattice metadata are included through side-channel embeddings to retain crystallographic context without unnecessarily expanding the discrete vocabulary.

Two complementary Transformer models are being trained. An autoregressive decoder model learns to generate complete structures token by token under composition constraints. A masked-token encoder model learns to reconstruct missing species from partially observed structures, enabling quantitative evaluation of local chemical preferences and uncertainty. A lightweight energy-prediction head aligns model likelihoods with DFT energetics, allowing generated configurations to be ranked and filtered before additional DFT verification. Physical interpretability is assessed using Warren–Cowley short-range order parameters, Li coordination statistics, energy–likelihood rank correlations, and comparison to ideal random, SQS, and cluster-expansion baselines.

The project is organized into five integrated tasks: DFT dataset generation, Transformer model development and training, evaluation of learned short-range order and energetics, generative sampling for inverse design, and benchmarking against CE/SQS methods. The expected technical contributions include validated generative models for high-entropy cathodes, new insight into dopant and lithium ordering motifs that control stability and transport, and transferable open datasets, code, and evaluation protocols for disordered crystalline materials. The framework is designed to extend beyond the two target cathodes to broader classes of high-entropy oxides, catalysts, and chemically complex energy materials.